The Chicago STAR TAP - Science, Technology And Research Transit Access Point

The University of Illinois at Chicago and its partners, the National Center for Supercomputer Applications (NCSA), the Argonne National Laboratory (ANL) and Ameritech will provide an operational interconnection point at the Ameritech Network Access Point (NAP) that will enable international connectivity and interoperability of the cutting edge US research networks (e.g., vBNS, Internet 2, Next Generation Internet components) and high performance networks of other nations. This project is a key piece of infrastructure for high performance international Internet connections to the vBNS. It will complement the forthcoming NSF solicitation for High Performance International Internet Services (HPIIS), and it will support the G7 Global Information Infrastructure project "Global Interoperability of Broadband Networking" (GIBN) by providing a common interconnection point with staff support and performance monitoring. The Canadian Network for the Advancement of Research, Industry and Education (CANARIE) has already connected to the vBNS through the Ameritech NAP in an initial proof-of-concept test.